Capturing Internet History

This award supports a two day conference in February 1997 entitled, "Capturing Internet History". The purpose of the conference is to begin recording the creation and development of the Internet through oral and written histories from the people involved. A plan for recognizing and recording significant future events also will result. MCI, Microsoft and NSF are contributing approximately equally to the conference.